Comparative Theoretical Studies of Interactions of Positronsand Electrons with Atoms

A comparative theoretical study of the interactions of positron and of electrons with atoms will be made. The research will include the following topics: 1. Positronium formation in ground and excited states with high positron impact energy. 2. Comparison of theoretical calculations of collision cross sections for various processes with positron and electron impact. 3. Annihilation and thermalization of positrons and the transport of electrons in various gases. The theoretical methods used optical scattering potentials for the collision cross section calculations and time dependent solutions of the Boltzmann equation in order to estimate the time dependence of various parameters related to electron or positron transport.